Visualization and Diagnostics for the Computational Sciencesand Applications to Computational Fluid Dynamics Research

This project is concerned with the development of intermediate-cost workstation computing environment to enhance productivity of scientists dealing with amorphous object visualizations. The major emphasis is on the graphical and analytical analysis of computer generated data to gain both quantitative and qualitative understanding of the underlying structure.